Summer Seminars for Secondary School Teachers: Instruction in the Use of Zoological Collections in Teaching Science

This project is a four year program that will provide a one week seminar each summer at the Bronx Zoo for secondary science teachers. The purpose of the program is to stimulate teachers' creativity, improve their instructional skills and to give them proficiency in the use of wildlife exhibits to motivate students to study science. The seminars will be based on the Bronx Zoo's award winning curriculum, Survival Strategies. Developed with NSF funds, Survival Strategies has been recognized as an effective program by the U.S. Department of Education; the New York State Department of Education; and the Johns Hopkins University Center for Research on Effective Schooling for Disadvantaged Students. Each summer, beginning in 1992, an intensive 5 day seminar will accommodate 35 science teachers of grades 7-11, selected from secondary schools throughout the United States. Following completion of the seminar, each participant teacher will offer in-service training for other science teachers from their local area.